Advanced Computational Techniques in Boundary Element Analysis

This is a joint Clarkson-Yale University project for the investigation of novel computational techniques to exploit intrinsic characteristics of boundary element analysis (BEA), for truly large scale problems on contemporary/emerging computers, removing bottlenecks to high performance computing by examining steps currently consuming up to 95% of overall computational resources. Special regard is given to the effectiveness of these techniques in the design process where solution of sequences of evolving problems and design sensitivity analyses are requires. Iterative equation solving, vector/parallel numerical integration, and iterative reanalysis and design sensitivity analysis, in a high performance computing environment, is being investigated. The knowledge gained, will facilitate the use of significantly more refined BEA simulations, predicting system response with increased fidelity, earlier in the engineering process, add to the general efficiency of BEA vis-a-vis finite element and finite difference analysis, and help make tractable the coupling of accurate three-dimensional simulation with programmed intelligence in overall analysis and optimization systems of practical utility in the mainstream of engineering and design.